Collaborative Research: Engaging Marginalized Groups to Improve Technological Equity

This collaborative project investigates the lack of diverse, representative datasets and insights in the development and use of technology. It explore the effects of disparities on the ability of technologists (e.g., practitioners, designers, software developers) to develop technology that addresses and mitigates systemic societal racism and historically marginalized individuals' ability to feel seen and heard in the technology with which they engage. The implications of this project are threefold: 1) it supports building relationships between technologists and technology users by understanding the values that most impact historically marginalized communities' engagement and data contributions; 2) given access to more diverse data and insights, the project provides technologists with interventions that empower them to make use of these data and insights in practice; 3) lastly, the work provides support and affirmation for the technologists who are already making these explicit considerations in their work without the adequate support. More broadly, insights from this project can be applied in practice to promote racial equity and ensure systemic racism is an explicit consideration in STEM education and workforce development by incorporating more equitable practices in technologists' workflow.

This study seeks to answer three main research questions: 1) What are the barriers to engaging and amplifying marginalized voices in technological spaces and data sets for both technologists and users? 2) How can marginalized groups be engage when designing and developing data-centric systems without sacrificing their safety, security, and trust? 3) What does it look like to provide interventions for engaging the margins to technologists without compromising the safe spaces for marginalized groups? Using a multi-modal approach, the project will examine how researchers and technologists can best learn to engage in data-centric research with marginalized communities in an ethically and socially responsible manner that centers the rights and values of the communities of interest. Culturally relevant approaches and grounding philosophies will drive the research methods and analyses. Through surveys, semi-structured interviews, design workshops utilizing a combination of participatory design and community-based approaches, as well as case study analysis to collect qualitative and quantitative data, the research team will develop an intervention that supports technologists in responsible engagement. Aside from real-world implementation, this project will share its findings through academic and community-facing venues, such as journal publications, conference presentations, op-eds, blogs, workshops, and social media.

This collaborative project is funded through the Racial Equity in STEM Education program (EDU Racial Equity). The program supports research and practice projects that investigate how considerations of racial equity factor into the improvement of science, technology, engineering, and mathematics (STEM) education and workforce. Awarded projects seek to center the voices, knowledge, and experiences of the individuals, communities, and institutions most impacted by systemic inequities within the STEM enterprise. This program aligns with NSF's core value of supporting outstanding researchers and innovative thinkers from across the Nation's diversity of demographic groups, regions, and types of organizations. Programs across EDU contribute funds to the Racial Equity program in recognition of the alignment of its projects with the collective research and development thrusts of the four divisions of the directorate.